Late Quaternary Paleomagnetic Intensities and Secular Variation from Dated Lavas In Southern Europe

The geomagnetic intensity is probably the least well known parameter of the paleomagnetic field, prior to the appearance of baked archeological artifacts about 10 ka B.P. (ka = thousand years; B.P. = before present). This award supports studies of the paleomagnetic intensities and secular variation during the past 90 millennia, recorded in more than 50 dated lavas of the Massif Central, Auvergne, France, and similar studies of dated flows from Italy, whose ages extend to about 130 ka B.P. The study will contribute to the vector description of the late Quaternary geomagnetic field, extending significantly the archeomagnetic record of paleomagnetic intensities an directions in southern Europe to about 130 ka B.P. Such data are needed for a more complete description of the field and for a more thorough understanding of the geodynamo processes responsible for its existence.